Organization of Annual Meeting of International Neural Network Society

Support is requested for an international conference on the subject of neural networkds. This subject deals with the modeling of behavioral and brain processes, and the application of neural modeling concepts to technological problems. Those topics have provided much stimulus in research areas such as vision and image processing, sensory-motor control and robotics, associative learning, self-organization, and cognitive information processing. The Conference is sponsored by the International Neural Network Society, which comprises researchers from diverse disciplines (engineering, psychology, neuroscience, mathematics, computer science, and physics). A principal goal of the meeting is to encourage students and younger faculty to learn about and contribute to the field; the NSF funds will be used to provide travel grants for them.